RUI: New Application of the Thomas-Fermi Theory to Electronic Screening of Point Charge Impurities in Insulators (Materials Research)

Development of a new application of the Thomas-Fermi theory to the study of electronic screening of charged point impurities in insulators will be continued. This new approach takes account of the insulator-type band structure (within a simple model): specifically, the gap is directly taken into account at the outset in the formation of the functional giving the electron density in terms of the electrostatic potential. Previous studies of this problem have been based upon various adaptations of metallic band structures for modeling the insulator. As the case of the positive point charge at temperature T=0 has recently been analyzed using this new method, (with the interesting result of intrinsic nonlinear long range screening) they will first examine the problem of a negatively charged point impurity at T=0. This is nontrivially different from the positive impurity case, e.g., it involves a "Coulomb hole." Next, the above study will be extended to nonzero temperatures. Finally they expect to begin investigation of exchange effects in the above framework.